Application of Saddle-Point Technique and Calculation of Atomic Properties (Physics)

The existing saddle-point complex-rotation method will be extended to include relativistic effects, such as spin-orbit and spin-spin perturbations. This will permit prediction of spin- induced coupling and spin-induced autoionization, hopefully removing existing discrepancies between theory and experiment. The saddle-point method will also be investigated for systems with more complex vacancy structures, and it will be extended from three electron systems to four electron atomic systems. The basic idea of the method is to build vacancy orbitals with parameters directly into the total wave function. The energy of a multiply excited atomic state appears as a saddle-point in a variational calculation. Only square integrable basis functions are used. The most distinctive advantage of the technique is gained in cases where the system is to highly excited that there are an infinite number of open channels.